MRI: Acquisition of High Resolution Scanning Electron Microscope for Research and Teaching in Nanostructured Materials Engineering

Abstract

Proposal Title: Acquisition of High Resolution Scanning Electron Microscope for Research and Teaching in Nanostructured Materials Engineering

Proposal Number: OIA - 0521011

Principal Investigator: Pritpal Singh

Institution: Villanova University

Analysis (rationale for decision):

The College of Engineering at Villanova University is developing a Materials teaching and research thrust area in which all four engineering departments will be collaborating. The high resolution scanning electron microscope being purchased through this NSF award will be used to supplement additional equipment being purchased by Villanova University (including an atomic force microscope and high
resolution transmission electron microscope) to support teaching and research in nanostructured materials. Sample projects to be conducted using this instrumentation include nanostructured solar cell development, nanostructured ceramic materials for cutting tool applications, microelectromechanical systems (MEMS), nanomagnets and
novel nanostructured material interfaces.

In addition to the research activities, a strong educational component will be built around the materials research instrumentation. Graduate and undergraduate students will participate in modern research and outreach activities with local community colleges, high schools and industry will be conducted. This instrumentation will be integrated into undergraduate and graduate courses.